Synergistic Computational and Experimental Magnetic Resonance Studies of Nanocrystalline Zeolites

In this award, funded by the Experimental Physical Chemistry Program of the Division of Chemistry, Professor Sarah Larsen, together with her undergraduate and graduate student researchers, will use magnetic resonance techniques (nuclear magnetic resonance (NMR) and electron paramagnetic resonance (EPR)) to elucidate the structure and properties of nanocrystalline zeolites. Nanocrystalline zeolites (with crystal sizes of less than 50 nm) are versatile, porous nanomaterials with potential applications in a broad range of areas including catalysis, drug delivery, imaging, environmental protection, and sensing. The characterization of the physical properties of nanocrystalline zeolites on a fundamental level is critical to the realization of these innovative applications. The distinct advantage of nanocrystalline zeolites over conventional microcrystalline zeolites is the increased external surface area that can be functionalized in order to tailor the surface chemistry. The utilization of the external surface will lead to the development and application of novel bifunctional, nanocrystalline zeolites. The experimental studies will be enhanced by synergistic quantum chemical calculations of magnetic resonance parameters, such as chemical shifts, quadrupole coupling constants, g-values and hyperfine interactions. In these studies, three main issues related to nanocrystalline zeolites will be addressed through the combination of magnetic resonance techniques and modern computational methods including: 1) surface structure, adsorption, and reactivity of nanocrystalline zeolites; 2) ion-exchange and functionalization of nanocrystalline zeolites, and 3) development of bifunctional nanocrystalline zeolites for applications in imaging and drug delivery.

The participation of a diverse group of students is an integral part of the proposed research. These students are being trained in an important, interdisciplinary research area at the interface of physical chemistry, materials chemistry and nanoscience and nanotechnology. Professor Larsen will continue her efforts to recruit a diverse group of students to her research program. She will continue to successfully integrate research and education particularly with respect to her interest in nanoscience and nanotechnology. She is involved in a collaborative chemical education project focused on developing laboratory experiments and outreach activities related to nanoscience and nanotechnology for K-12 audiences. As part of this project, she will extend these efforts to include outreach to the local high schools and elementary schools through the preparation of outreach kits containing hands-on activities with nanomaterials.